Biocomplexity--Incubation Activity: Drought in Mesic and Arid Environments: Climatology, Biotic Responses, and Feedbacks

0083752
Ward

Faculty from the University of Alabama and the University of
New Mexico will coordinate development of a Biocomplexity
research proposal that (1) advances our current, limited
understanding of how droughts are initiated and maintained; and
(2) provides assessments of impacts of drought in river basins in
the contrasting mesic and semi-arid climates of Alabama and
New Mexico. We will develop a new, quantitative understanding
of biological, hydrological and atmospheric interactions that control
initiation, duration, and consequences of drought. Our ultimate
goal is to understand biotic response to drought well enough to
make estimates of climate feedback and contribute to better
predictive climate models. The planning proposal will fund
analyses and integration of relevant data sets from both regions,
travel for faculty exchanges, and full-group workshops to facilitate
preparation of a biocomplexity and other interdisciplinary research
proposals appropriate for this theme.